Asymmetric Catalysis of Carbon-Carbon Bond-Forming Reactions

The foci of this research are twofold. First, methodology will be developed for the enantioselective incorporation of simple olefins such as ethylene and propylene into prochiral molecules. Second, new strategies will be developed for intramolecular coupling of alpha, omega-dienes and alpha, omega-diynes for the synthesis of carbocyclic and heterocyclic compounds.

With this renewal award, the Organic and Macromolecular Chemistry Program is supporting the research of Dr. Thaliyil V. RajanBabu of the Department of Chemistry at Ohio State University. Professor RajanBabu will focus his work on developing highly selective carbon-carbon bond forming reactions based on catalytic activation of neutral molecules. The research has potential broader impacts for pharmaceutical, agricultural and materials science and provides an excellent milieu for the training of graduate students.